The Third Branch in the Fourth Estate: The Media's Role in the Diffusion of Legal Knowledge

Virtually all scholarship about public opinion and the Court is
predicated on the view that the media are principal actors in
diffusion of knowledge about the Court. Yet most Court reporters have
little to no legal training and media coverage may conflict sharply
with views in the legal community. So, what role does the media play
in the public understanding of the Court? Do news and editorial
boards exercise discretion in writing about law in systematically
distinguishable ways? What are these implications for the study
of judicial politics? What are the normative implications?

To date, virtually no systematic, large-scale, empirical examination
has shed light on the foundational role that the media play in the
diffusion of legal knowledge. This project fills that
void by:

-- characterizing how the media, via hard news stories and
editorials, has portrayed the workings of the Supreme Court over
time, across cases, and across outlets;

-- assessing how media coverage of the Court differs from the
understanding in the legal community;

-- providing publicly available data and summary measures that
describe how media outlets disseminate information about the Supreme
Court;

-- providing documented, easy-to-use software for the statistical
analysis of newspaper articles and editorials.

The project is the first assessment of media coverage of the
Court that examines all news stories and editorials on the Court
written by over 20 major newspapers in a 10 year period. A major
portion of the project is the development of widely-applicable,
easy-to-use software and statistical methods for analyzing the content
of news articles. In so doing, the principal investigators are
positioned to address foundational questions in how, what, when,
where, and why the media reports on the Court.